A Plant Growth Chamber Facility for the University of Massachusetts Amherst

Award Abstract - 9970191

This award will support the acquisition of a suite of plant growth and environmental chambers for a plant growth facility. The Plant Growth Chamber Facility at the University of Massachusetts, Amherst, MA will be used by faculty in the Plant Biology Graduate Program for the growth and reproduction of plants under conditions of controlled light, temperature, humidity, and day length. Specific projects will examine clonal growth and resource capture in Fragaria (strawberries), molecular and biochemical analysis of plant reproduction in Nicotiana (tobacco), the role of calcium and the cytoskeleton during division and growth in Tradescantia (spiderwort) and Lilium (lily), the developmental regulation of auxin biosynthesis in Arabidopsis, virus replication and symptom reproduction in Brassica (turnip) and Arabidopsis, and the structural analysis of paramutation at the R locus of Zea (corn). The growth chambers will be located in the head house in close association with the Biology Department Greenhouses. Day to day operation and maintenance will be undertaken by experienced staff, which includes expertise in both plant growth and in heating and refrigeration. The facility will be governed by a core of participating faculty.